Acquisition of a Field Emission Gun Analytical Transmission Electron Microscope for Materials Research

Funds fron the Academic Research Infrastructure Program will support the acquisition of a Field Emission Transmission Electron Microscope (FE-TEM), an instrument that is specifically designed for high-resolution chemical analysis. The FE-TEM will include basic specimen stages, an x-ray flourescence spectrometer, a GATAN imaging filter, and a charge- coupled-device (CCD) camera and associated hardware. The FE-TEM will be employed in the study of: 1) structure and properties of alloy and model composite interfaces; 2) the effect of impurity segregation on the fracture mechanisms of metal/ceramic interfaces; 3) structural and compositional inhomogeneities in microwave ceramics; 4) the effects of concentration gradients near grain boundaries on the properties of electronic ceramics; 5) local structure and composition in catalytic materials; 6) morphological development of nanocrystalline ceramic composites from polymeric precursors; 7) chemistry/property relations at the interphase region in polymer/ceramic composites; 8) polymer interfaces and capillary wave formation. A field emission transmission electron microscope with associated peripheral hardware will be employed in the study of materials. A diverse range of topics from composite interfaces, fracture of metal/ceramic interfaces, microwave and electronic ceramics, catalytic materials, polymer/ceramic composities, and capillary wave formation at polymer interfaces will be studied.